Postdoctoral Research Fellowships in Chemistry

Dr. Eugene G. Mueller has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Mueller's doctoral degree was from Harvard under the supervision of Professor Jeremy Knowles. He intends to continue his research with Professor John Bercaw at the California Institute of Technology. Dr. Mueller's thesis work involved studies of the stereochemistry of phosphoryl transfers. He plans to do postdoctoral work in basic inorganic chemistry studying agostic interactions in catalyis and learning about oxidation of substrates by ruthenium based systems. This will help prepare him for his long range career goals of the chemical modelling of the myo-inositol oxidase enzyme. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical research and teaching.